12th International CODATA Conference, Columbus, Ohio July 15-19, 1990

Dr. Gerald O. Platau has been awarded a grant from The Special Projects Office of The Chemistry Division with additional support from The Division of Materials Research, The Division of Information, Robotics and Intelligent Systems, and The Division of Instrumentation and Resources to help defray expenses associated with hosting the 12th International CODATA Conference. The conference will be held in Columbus Ohio on July 15-19, 1990. The theme of the conference is "Data for Discovery", and it will provide a framework for discussion by international experts on the following major areas: 1) Prediction of Global Change; 2) Spatial Databases; 3) Materials Properties Data Systems; 4) Expert Systems and Other Knowledge Tools; 5) Trends in Integration of Information Across Biology; and 6) Impact of New Technology on Data Handling. The NSF contribution to the overall funding of this meeting will help to provide travel and subsistence expenses for several of the invited speakers.